NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1998

Abstract DBI-9803904 Mark L. Siegal This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1998. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled molecular evolution of the sex-determination pathway in insects. Sex determination in Drosophila is a model for genetic hierarchies in development. The well-known variety of primary sex-determining mechanisms suggests that sex determination is exceptionally plastic, changing often in evolution. A comparative approach is being taken to probe the divergent modes of genetic sex determination in insects, with reference to the detailed knowledge from Drosophila.